Architecture of the Visual System

The major question addressed by Dr. Berman's studies is how the brain processes information given to it by the eyes. As scientists have learned more about how vision occurs, it has become clear that there are separate systems for processing particular types of information, such as pattern, color and motion, which can be identified at all levels of the visual pathways including the retina. In the retina, certain cells are specialized to detect particular types of stimuli in the visual world. These cells send information to particular regions of the brain which are specialized in processing the same type of information. The two major types of retinal cells are the "on-center" cell, which detects light objects on a dark background, and the "off-center" cell, which detects dark objects on a light background. In the retina, these cells are anatomically distinct, and each type is organized to allow it to "see" the complete visual environment independently of the other type. The major goal of Dr. Berman's work will be to learn how on-center and off-center information is processed in the region of the brain which receives this retinal information, the lateral geniculate nucleus. Dr. Berman will use anatomical and physiological methods to study the detailed arrangement of these cell types in this nucleus. This will provide basic information on how the brain processes information about contrast, an essential function for normal vision.